Collaborative Research for Developing ATD: Bayesian Methods in Syndromic Surveillance: CAR Models and Computational Implementation

The collaborative team develops and implements computationally of a Bayesian
formulation of syndromic surveillance targeted at early detection of disease
outbreaks. The research spans statistical theory and methodology, as well as
issues of algorithms and computational science. Conditional autoregressive
models, or CAR models, form the basis of the formulation, in order to
accommodate spatial as well as temporal effects. The principal challenges are
scalability (7,500 major U.S. hospitals are linked into the reporting
network), multivariate reports, complex dependence structure in the data, low
data quality, and incorporation of regional and other covariates. The unifying
theme is principled calculation of uncertainties.

The research is framed by an application of national significance. There is
enormous social and economic benefit from early discovery of disease. The
stakes are immense: the US Office of Technology Assessment estimates that a
release of 100 KG of anthrax spores upwind of Washington, DC would, if not
detected rapidly, lead to as many as three million deaths and a trillion
dollars of economic losses. The research produces actionable, easily
interpretable information that supports decision makers: a clear statement of
the probability that a particular disease is present somewhere in the US, or
present in a particular city, together with the associated uncertainty.
False alarm rates are controlled, making them commensurate with resources
available for post-signal investigation and taking into account
consequences such as the psychological and financial impacts of a false alarm.